Nucleon Spin Structure Studies Using Parity Violating and Inelastic Electron Scattering

9901428
Averett
An experimental program is underway to study the structure of the
nucleon in terms of quark degrees of freedom at the Thomas Jefferson
National Accelerator Facility (Jefferson Laboratory). This research
will be carried out in two distinct experimental programs. The first
is the so-called ``G0'' experiment which will use parity violating electron scattering to precisely determine the weak elastic form factors of the proton. From this measurement, one can extract the strange electric and magnetic form factors which are directly related to the charge and current
distributions of the strange quarks within the nucleon. To achieve
the goal of high precision and broad kinematic coverage of this
experiment, a dedicated large acceptance and liquid hydrogen target
are being constructed. Design, prototype studies, and final construction of the detector is the shared responsibility of the Electroweak Spin Physics Group (Finn et al.) and myself at the College of William and Mary and a collaboration of scientists from North America and France.
The second area of research encompassed by this grant involves
studies of fundamental properties of the neutron such as the electric
and magnetic form factors, spin structure functions, higher-twist
effects, and tests of the fundamental Drell-Hearn-Gerassimov (GDH)
Sum Rule. In these experiments, polarized electrons are scattered from an
optically pumped, polarized Helium-3 gas target (which serves as a
polarized neutron target), and are subsequently detected using two
high resolution spectrometers. The first two of six approved experiments
using polarized Helium-3 were successfully completed from August 1998-February 1999. These measurements provided high precision determinations of the GDH Sum Rule and magnetic form factor for the neutron at low momentum transfer where non-perturbative QCD effects are important. Data analysis from these first experiments, and polarized target improvements in preparation for the remaining experiments, are currently underway. Of particular interest is experiment E97-103 (Averett, Korsch et al) which will search for higher twist (non-perturbative QCD) contributions to the deep-inelastic structure function g2 for the neutron at low momentum
transfer. This will be accomplished by scattering longitudinally
polarized electrons from a transversely polarized Helium-3 target.
It is expected that this experiment will achieve a statistical
error which is approximately two orders of magnitude smaller than
current world data and will provide much-needed quantitative guidance
for future theoretical calculations in this area.